Constraints on the Astrophysics of Massive Stars from Isotopic Effects in Presolar Grains

ABSTRACT

Meyer, Bradley
AST-9819877

This project will undertake the task of modeling the formation, modification and survival of dust in the supernova environment. Its goal is to determine the processes which yield the isotopic abundances observed in pre-Solar grains. A large interdisciplinary team has been assembled to address each part of the overall problem, from the physics of the initial explosion, nucleosynthesis, condensation mechanisms, and decay rates. The work at Clemson will focus on computing detailed models of the isotopic abundances of massive stars that are the progenitors of supernovae. Isotopic abundance, temperature, density and pressure histories of the various composition zones will be modeled for the expanding supernova shell, followed by a chemical equilibrium analysis of the modes by which condensation can occur in the cooling material.